EAGER: Quantum Algorithms for Reduced-Order Iterative Methods in Multiscale Solid Mechanics

Advanced aircraft, energy systems, transportation infrastructure, and next-generation manufactured materials often derive their large-scale behavior from physical processes occurring at much smaller scales. For example, the overall strength, deformation, and failure of a structure may depend on microscopic features such as crystal structure, molecular chain networks, cracks, or localized damage. Modern multiscale simulation methods attempt to capture these effects by linking large-scale structural calculations to enormous numbers of smaller-scale material calculations performed repeatedly throughout the simulation. Although this approach can greatly improve predictive accuracy, it is extremely expensive because the small-scale problems must be solved thousands of or even millions of times. This EArly-concept Grant for Exploratory Research (EAGER) project will explore whether emerging quantum computing methods can provide a fundamentally different way to perform these multiscale calculations more efficiently. Rather than computing every detail of the small-scale material response, the project will investigate methods that directly estimate only the key quantities needed by the larger-scale simulation. If successful, this approach could enable faster and more predictive simulations for advanced manufacturing, structural materials, and energy applications while helping establish new foundations for the use of quantum computing in engineering. The project will also support interdisciplinary education and workforce development by training graduate students in mechanics, scientific computing, and quantum information science.

Multiscale solid mechanics is based on the premise that macroscopic material behavior emerges from physical processes occurring at much smaller spatial scales. In methods such as multiscale finite element computational homogenization, constitutive response at each macroscale integration point is obtained by repeatedly solving localized microscale boundary value problems. Although this framework provides a rigorous route for predicting material behavior, the repeated microscale solutions become prohibitively expensive in problems involving material heterogeneity, nonlinear deformation, and damage. This research aims to investigate whether recently developed quantum linear-system formulations can provide a fundamentally different computational route for evaluating the reduced quantities required by multiscale simulations, such as effective stresses and tangent contributions, without reconstructing the complete microscale solution field. The approach applied here will investigate variational quantum linear solvers together with relaxation-based reformulations of linear systems in which conditioning depends primarily on iteration structure rather than on mesh size or material contrast. These formulations will be embedded within Jacobian-free Newton–Krylov methods commonly used in nonlinear mechanics. Representative nonlinear multiscale solid mechanics problems will be used to evaluate convergence behavior, conditioning effects, reduced-order observable estimation, and computational scaling.